Workshop Proposal on Strategic Planning for an Academic/Industry Center for Language Technologies (Spring 2007, Washington DC metro area)

The purpose of this award is to plan and hold a two-day workshop
involving representatives from academia, industry, and government to
discuss the feasibility of developing a center-based partnership
between industry and academia in the area of human language technology
(HLT). Although currently this research area does not have such a
center, given the success story of Linguistics Data Consortium and the
fact that there are many potential industrial partners, the time is
ripe to build a better understanding of how to create a center that is
not only mutually beneficial, but supports work that simply could not
be done by either partner alone. Such collaboration would be
important for stimulating research excellence at the university while
enhancing the quality of the intellectual property of US HLT
companies. The participants are meeting to develop a strategic plan
for building a mutually beneficial research center. Generally center
vehicles at NSF require strong commitments from industry. This
workshop will focus on evaluating the feasibility of building
partnerships for two of these programs: Industry/University
Cooperative Research Centers and Engineering Research Centers:
Partnerships in Transforming Research, Education and Technology. The
intellectual merit of the proposed activity is specific to the
planning of the workshop. The broader impacts of such a center would
be to stimulate HLT research at the university, while enhancing the
intellectual property of industrial affiliates.